Symposium on Applications of Ionizing Radiation in Environmental Engineering Practice, December 17-22, 1995 in Honolulu, Hawaii

9529317 Cooper This is an award to support conduct of a symposium the objective of which is to bring together investigators who are conducting research on the applications of ionizing radiation in environmental engineering practice. The sources of ionizing radiation to be considered will include gamma radiation for radioactive substances but will concentrate on ionizing radiation produced by electron beam accelerators. The applications include processing of solid, liquid and gaseous wastes to reduce their pollutional impact on land, water and air resources and to improve the efficiency of other physical, chemical and biological processes used in waste treatment systems. This symposium will be conducted in conjunction with the International Chemical Congress of Pacific Basin Societies that will be held in Honolulu, Hawaii from December 17-22, 1995. The Congress is sponsored jointly by the Canadian Society for Chemistry, the Chemical Society of Japan, the American Chemical Society, the New Zealand Institute of Chemistry and the Royal Australian Chemical Institute. Results of this symposium are expected to provide guidance to the Environmental and Ocean Systems Program in planning support of further research on applications of ionizing radiation in processing of contaminated and infected liquids, solids and gases to reduce their pollutional impacts on land, water and air.